Expression of a Gene That Promotes Intestinal Development in C. elegans

9506089 Rothman This proposal will investigate the molecular processes required for establishment of a complete organ, the intestine, during embryogenesis of the nematode Caenorhabditis elegans. This organ is clonally derived from a single, exclusive progenitor called the E cell, in the seven cell embryo and constitutes the entire endoderm. A genomic region required zygotically to produce the intestine has been identified in a screen of genetic deficiencies (deletions). The relevant locus, referred to as the end-1 gene, was localized to a DNA fragment that rescues the gut differentiation defect of the deficiencies and of a putative point mutant. The end-1 gene will be expressed ectopically to assess whether it is sufficient to promote intestinal differentiation from non-intestinal precursor cells. Gene fusion constructs and antibody to the end-1 product will be made to characterize when and where the gene is expressed during embryogenesis and where its product is localized within cells. Interactions between end-1 and maternal genes required for normal specification of the intestine will be examined by characterizing double mutants and analyzing expression of end-1 in maternal mutants. These studies will assist in understanding the molecular function of the end-1 gene product in specifying an entire organ, the intestine, thereby elucidating molecular processes that specify the identity of a single organ and a single germ layer during animal development. ***